Power, Craft Production, and Exchange in Southern Mesoamerica

With National Science Foundation support, Drs. Patricia Urban, Edward
Schortman, and Ms. Marne Ausec have worked to describe and explain changes in
prehistoric power relations within the adjoining Naco and lower Cacaulapa
valleys, Northwestern Honduras. The basic question has been, and remains,
"How did a few come to rule the many?" Answering this deceptively
straightforward query requires examining the ways in which local rulers
marshaled political and economic forces within their societies and forged
alliances with peers in neighboring realms. The hypothesis guiding this
research proposes that: 1. Rulers exercised dominion by monopolizing local
access to imported commodities valued and needed by the general populace, as
well as locally produced items, such as ceramic vessels and stone tools; 2.
Commoners surrendered their labor and loyalty to local notables in return for
access to these goods; 3. Unwilling to go gently into dependence, commoners
also used their skills and immediately available resources to make as many
items for their own use and trade as possible, thereby minimizing reliance on
local lords; 4. This competition resulted in a population divided by the
power ndividuals, families, or factions could wield and the wealth they
enjoyed.
Work funded by the National Science Foundation in Naco, from 1990-1996, was
instrumental in establishing this model; investigations pursued in the lower
Cacaulapa valley from 1999-2000, also funded by the NSF, are crucial to
testing these ideas. Survey of 7km2 in the lower Cacaulapa drainage
identified a major political capital, El Coyote, with over 340 prehistoric
structures covering 0.7km2. Excavation of 2,850m2 on and around 40 buildings
at El Coyote and in five rural sites revealed a history of occupation that
diverged markedly from the expected. Specifically, emerging data patterns
suggest that first, El Coyote came to prominence during the Late Classic
period (AD 600-950; the site was founded as early as AD200), possibly as an
outpost of its larger Naco Valley contemporary, La Sierra. Second, rather
than staying within La Sierra's shadow, El Coyote's rulers established their
independence by AD 1000. Third, building on their new-found autonomy, lower
Cacaulapa notables went on to fashion a realm that was growing in size and
complexity, and acquiring goods from as far away as central Mexico and
Guatemala's Pacific coast, between AD 1000-1300, when neighboring societies,
including those in Naco, suffered profound declines. Assessing these
preliminary interpretations requires further analyses of ceramics, stone
tools, faunal and floral remains, as well as human skeletons, to be conducted
with National Science Foundation support during May through December, 2001.
These studies will focus on: 1. stylistic studies of artifacts, particularly
ceramics, designed to help date deposits, and infer the external connections
enjoyed by lower Cacaulapa residents through time; 2. technological analyses
aimed at identifying the range and scale of specialized production activities
in which residents of El Coyote and its hinterland engaged; 3. functional
studies aimed at reconstructing changes in patterns of consumption and
production across time and space; 4. distributional assessments, to test for
artifact patterns suggestive of wealth and power differences; 5. examination
of skeletal remains to describe demographic processes as well as stresses (for
example, dietary deficiencies, injuries, physical changes from movements
unique to certain occupations) to which lower Cacaulapa populations were heir.
The planned work is crucial to writing lower Cacaulapa valley prehistory and
comparing the ways in which political and economic processes were manipulated
there and within other ancient states. The research applies not just to
Honduras, or even the ancient New World, but to any society in which those
seeking power tried to alter their societies, while others resisted
domination.